CAREER: Reusable, Realistic Motion Libraries for Computer Animation

Animation is a tremendously powerful medium of expression.
Ideas that would be complex or even impossible to express
with still images or words can easily be conveyed using
animated sequences. Unfortunately, even when the concept to
be conveyed via animation is simple, the process of
producing the animation is inordinately difficult. Indeed,
this is one of the reasons computer animation has become so
dominant - it holds the promise of automating, and thus
significantly simplifying, the production process. Sadly,
the process of transferring ideas into computer animations
is still far from simple. For example, the animated feature
film Toy Story 2 required extremely hard work by as many as
200 highly skilled computer and animation experts for more
than three years.

My career goal is to develop the concepts and algorithms
that will enable effortless, rapid development of realistic
animations that effectively convey the creator's purpose.
This research hopes to create the theoretical and
experimental foundation for building much more powerful
animation tools than exist today. Such tools will sharply
reduce the production time needed by skilled animators and,
more importantly, enable average computer users to express
their ideas through animation. Such tools will also help
educators teach more effectively and allow each one of us to
become creators and directors of personal and fictional
stories. Only when animation production is easier will
animation be as commonplace on the web as images and text
are today. Moreover, intuitive methods for creating
realistic human motion will further enable the creation of
human avatars in tele-presence applications, new
anthropomorphic human-computer interfaces, and realistic
digital actors in feature films and video games. Computer
animation will not achieve its full potential until 1)
animation tools require little or no skill, 2) an animator's
creativity is not stifled by the limitations of the
animation tools, and 3) the animation systems are available
to every person with a computer and a story to tell. I hope
to significantly contribute towards these goals.

At the heart of this research is the observation that the
animator's creativity will not be fully realized until it
becomes easier to produce realistic motion sequences. This
problem is tremendously challenging because the underlying
physical models of motion are difficult to create and
control. I believe that the solution lies in the creation of
highly-flexible realistic motion libraries, together with
tools to modify them intuitively and extensively. The power
of libraries stems from the ability to reuse already
existing high-quality motion, reducing the need for
animation skills. In this paradigm, the process of animation
turns into selecting the specific motion library, and
modifying a set of motion properties that transform the
original motion into a final animation.

In my research, I propose to develop a methodology for
creating and using realistic motion libraries flexible
enough to be used in a wide range of applications. In 1995,
I proposed the use of motion transformation as new way to
create animations - a method fundamentally different from
the traditional way of creating animations from scratch.
This transformation approach is particularly useful for
modifying realistic motion data captured from real-world
actors. Unfortunately, during the transformation process,
much of the realism tends to be lost. Recently, I published
a novel transformation approach which demonstrates that
animations can be intuitively transformed into a wide range
of new sequences without violating the fundamental dynamic
properties of motion. The realism is preserved by
maintaining a model of the dynamic and biomechanic
properties of the animated character.

In the future, I will further develop mathematical models
that can be combined with real-world data to create reusable
motion libraries. Aside from preserving the realism of
motion, the most important requirement for effective motion
libraries is the flexibility with which the libraries can be
adjusted to meet the needs of an animator. I plan to achieve
this flexibility by decomposing a character's motion into a
fundamental component and a style component in a way
that allows us to independently transfer these components to
new characters. For example, the animator can produce a
child's cheerful run sequence by starting with a running
motion library extracted from the captured human run. This
motion can be modified by applying a happy, exuberant motion
style, which is then transferred to an animated character of
a small child. Such decoupling of the fundamental motion,
style, and performing character provides an extremely
powerful and flexible animation paradigm that can produce a
wide range of animations from a very small motion dataset.

The main goal of the educational component of this proposal
is to demonstrate the utility of advanced animation tools in
education and story-telling. I am particularly interested in
introducing these new animation tools to Seattle high-school
students to verify that our research does indeed empower
every story-teller with an accessible medium of expression.
I am also planning a project-oriented animation course
intended for undergraduate and graduate students involved in
animation research, as well as in art and music. Together,
the students will work on using our tools to create an
artistic short film project. This synergistic effort will
expose the artists to the latest animation technology and
provide direct user feedback to students involved in
research. In addition, the created motion libraries as well
as the animation tools, will be freely distributed through
the web and CDs with the hope that they will help animation
become an effective communication medium across educational,
economic and cultural boundaries.